PostDoctoral Research Fellowship

This award is made as part of the FY 2016 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Kyler Siegel is "Fukaya categories, symplectic field theory, and symplectic flexibility." The host institution for the fellowship is Massachusetts Institute of Technology, and the sponsoring scientist is Paul Seidel.